Reliability-based Design of Engineered Wood Structures Advanced Research Workshop - Fall l991

This project will organize an international workshop to evaluate the current state-of-the-art on the reliability based design procedures applied to timber structures. The project is conducted jointly with the NATO International Scientific Exchange Programs. The workshop is planned for late fall 1991 in Colorado. Proceedings of the workshop will be widely distributed.